Presidential Young Investigator Award: Theoretical And Computational Fluid Mechanics

This research will focus on vortex dynamics including fundamental issues of vortex motion and the development of computational methods. The theoretical work is concerned with nonlinear dynamics description of vortex motion, such as chaos and solitons. The computational work involves development of efficient vortex-based algorithms and codes for following statistically evolving flows including shear layers, wakes, and interfaces in stratified flows. Application of the results to vorticity dominated flows will be pursued, e.g. vortex shedding from propeller blades, sound and noise production, and coherent structure in shear layers.